Androgen Receptor Expression in Developing Forebrain

9604487 DonCarlos Testosterone plays a fundamental role in the development of the vertebrate nervous system. Exposure to this hormone during sensitive periods influences the morphology, connectivity, and chemistry of the central nervous system. These early developmental effects of testosterone set the stage for adult sex differences in physiological and behavioral functions. Brain regions that are known to be sexually differentiated in the presence of perinatal testosterone include areas involved in the control of reproductive physiology and behavior, learning and memory, cognition, play and social behavior, and aggression. While testosterone is the major hormone of the perinatal testes, this steroid can be converted enzymatically to estrogen and to other androgens in the brain. Thus, it became widely believed that most, if not all, of the effects of testosterone during the sensitive periods of development resulted from its metabolism. Indeed estrogen and estrogen receptors are known to be present in the brain during development and to participate in the differentiation process. More and more evidence is accumulating, however, that suggests testosterone itself plays an important role. Since androgen receptors are believed to be an integral component of its action, Dr. DonCarlos will use in situ hybridization and immunocytochemistry to identify when, where, and in what cell types androgen receptor is being expressed in the developing brain. She will also determine whether there are sex differences in androgen receptor expression, and, if so, when such differences are evident. The results from these studies will contribute to our understanding of the normal developmental process of sexual differentiation of brain function, and will also provide more general insights into how intrinsic properties of neural development are modified by exposure to external signals.